Near-and-Far-from-Equilibrium Statistical Physics of Nonlinear Dispersive Waves

The investigator studies the non-equilibrium statistical
physics aspects of large spatially extended systems, in
particular, nonlinear dispersive wave turbulence. He aims to go
beyond the traditional weak-turbulence regime to include the
dynamics of turbulence of coherent excitations induced by strong
nonlinearity, including intermittent wave collapses, in the
interaction of resonant waves. The non-equilibrium statistical
physics of wave turbulence is studied from two new perspectives:
(1) Fluctuation Theorems: These new theorems have provoked much
recent activity for many physical systems. Here the investigator
considers whether Fluctuation Theorems hold for non-equilibrium
wave turbulence and studies related far-from-equilibrium issues,
such as (i) the universality of Fluctuation Theorems in wave
turbulence, (ii) the relation to large-deviation theory, (iii) the
dynamical consequences of effective temperatures, and (iv) the
implications of Fluctuation Theorems for phase-mixing and
dephasing processes at the onset of wave turbulence.
(2) The Maximum-Entropy Principle: Previously, wave turbulence
has been examined using this principle for equilibrium states
only. Here the investigator aims (i) to include the consequences
of the maximum-entropy principle for wave turbulence flux
dynamics, when applied to the weakly nonlinear regime, in which
the weak-turbulence often arises, and (ii) to further examine the
applicability of the maximum-entropy principle to wave turbulence
far from equilibrium. The project requires synergistic
applications of theoretical concepts and techniques that are
derived from statistical physics, stochastic processes, dynamical
systems, computational science, and asymptotic analysis in modern
applied mathematics. The topics are theoretically important for
providing a more complete description of fluctuations in the
dynamics of wave turbulence from near-equilibrium to
far-from-equilibrium. The results derived from these
investigations could provide new mathematical formulations of
nonlinear dispersive wave turbulence.

The investigator uses new theoretical approaches to study
nonlinear dispersive wave turbulence, which is one of the most
challenging theoretical problems. This work broadens the scope of
wave turbulence from non-equilibrium statistical physics and
extends the applicability of physical principles of
non-equilibrium statistical mechanics to wave turbulence, which
arises, for example, in nonlinear optics, acoustic waves, plasmas,
superfluid helium and the Bose-Einstein condensation, capillary
and gravity waves on the ocean surface, internal waves in the
ocean. Theoretical insights derived from this work may shed light
on turbulence-induced complexity, such as in the atmosphere and
ocean dynamics, or in the transport of chemicals in a turbulent
environment.